Pastoral Systems Past and Present: A Comparative View

Under the direction of Dr. Lee Cassanelli, Ms Kathleen Ryan will collect ethnographic data for her doctoral dissertation. She will conduct two seasons of field research with Massai pastoralists in southern Kenya to study herd management strategies. The Massai depend on cattle for subsistence and maintain large herds of animals. Ms Ryan wishes to know what, at a traditional level of subsistence, are the constraints which such herds impose and what constitute the most successful management strategies. During a preliminary field season, she has obtained permission to work with traditional Massai groups. She plans to examine herd compositions in terms of animal age and sex distribution. She will also look at culling strategies which are employed, labor requirements for care of animals, how cattle are redistributed and exchanged through bridewealth, inheritance and other practices. The redistributive effect of cattle raiding will also be studied. Finally, Ms Ryan will examine Massai strategies to deal with cattle disease and other disasters. While the data collected will be ethnographic, the goals of this research are archaeological in nature. Cattle were first domesticated ca. 10,000-12,000 years ago and they formed the subsistence base for prehistoric societies in many parts of the Old World. During some time periods in areas such as Ireland, cattle played a major role in shaping social organization and Ms Ryan believes that one can begin with cattle themselves, determine the requirements for a successful management strategy, and on this basis gain insight into human social practices. Since the Maasai rely so heavily on cattle they provide an ideal context to examine relationships of this type. This research is important for several reasons. It will provide data which may be generalizable to many contexts and therefore be of interest to many archaeologists. It will yield insights into present day African subsistence practices and will assist in the training of a promising young scientist.